RAPID - Collaborative Research: Impact of the New Horizon Oil Spill on Ecosystem Metabolism and Gas Exchange in the Northern Gulf of Mexico Hypoxic Region

On April 20, 2010, the Deepwater Horizon offshore drilling rig, located 41 km off the coast of Louisiana, experienced a blowout and explosion that resulted in 11 deaths, the sinking of the drilling rig, and uncontrolled discharge from the well at an estimated rate of 5-25 thousand barrels of crude oil each day. Owing to the challenge of containing discharge at a depth of 1,500 m it is anticipated that the well will continue to flow for many weeks and exceed the Exxon Valdez as the most severe oil disaster in U.S. history. The oil spill is likely to encompass the extensive area that develops hypoxia on an annual basis in the northern Gulf of Mexico (NGOMEX). The development and extent of hypoxia in the northern Gulf of Mexico has been of concern for many years owing to, for example, its detrimental impact on fisheries (Rabalais et al., 2007; Turner et al., 2007).

With funding through this Grant for Rapid Response Research (RAPID), scientists at Michigan State University and the University of Texas at Austin will participate in an upcoming research cruise of the RV Pelican from May 21-27, 2010, that will be sampling at stations that already are or are very likely to be impacted by the oil spill. Indeed projections by NOAA for the distribution of oil from the spill are in close proximity to all of the proposed research stations. The research team contends that the oil spill will exacerbate the development of hypoxia in the NGOMEX by altering rates of primary production, respiration and gas exchange. Consequently, they will test the following hypotheses:

Hypothesis 1: The oil spill will enhance hypoxia in the NGOMEX by (1) reducing primary production, (2) enhancing respiration and (3) reducing gas exchange.
Hypothesis 2: The gas exchange rate will be a function of the abundance, composition and origin of surfactants in the surface water layer.

The layer of oil across the sea surface is expected to reduce penetration of light for photosynthesis thereby reducing rates of primary production. Respiration is likely to be enhanced by the increased availability of the oil; particularly as the microbial community metabolizes this carbon source. Rates of gas exchange between the ocean surface and atmosphere are very sensitive to the presence of surface organic films. The team will approach these hypothesis by determining depth profiles of the triple isotopic composition of dissolved O2 and ratios of N2:Ar and O2:Ar that collectively yield rates of primary production, respiration and gas exchange. They will further determine the abundance, composition and origin of the surface organic layer as a control on the rate of gas exchange.

Broader Impacts: While the environmental impacts of oil spills are many, less well known is the potential for oil spills to enhance the development of hypoxia in regions prone to this condition. A long term understanding of hypoxia in the NGOMEX and other regions impacted by oil spills will enhance society's ability to predict the ecological consequences of this and similar disasters. This project will directly involve two undergraduate students and the results of this project will be a focus of the investigators' courses of instruction, including courses at MSU and UT Austin on Oceanography and Marine Biogeochemistry, respectively. Further, MSU and UT have mechanisms in place to facilitate presentation of research findings to the media including MSU's Environmental Science and Policy Program and Knight Center for Environmental Journalism and via UT's nationally broadcast radio program: "Science and the Sea".